Activating Parents in Implementing New Jersey's Mathematics, Science and Technology Standards

9705200 Rosenstein This project, coordinated by the New Jersey Mathematics Coalition (and a major partner with the SSI) will use the recently completed New Jersey Frameworks in mathematics and science as the core of a parent education effort that will reach 300,000 parents of school age children in the state, representing 50% of the parent population and all 603 school districts. This project will be a vehicle for providing opportunities for parents to become familiar with these standards. The project will undertake a three-stage approach to parental outreach: (1) awareness activities, including the development of materials printed in both English and Spanish, public television, and a Website; (2) increasing involvement of parents through establishing a clearinghouse for information; and (3) activation activities to help parents work more effectively on mathematics and science reform efforts at the school, district, and state levels.